Design and Implementation of Network Protocols for Desktop Multimedia Communications

9361838 Pang Title: Design and Implementation of Network Protocols for Desktop Multimedia Communications This project is funded under the National Science Foundation's (NSF) Small Business Innovation Research (SBIR) program, which is designed to provide an opportunity for small business, particularly the small high technology firm, to participate in NSF research. Phase I of the SBIR program serves as a filter to select promising proposals and determine if the firm can do high quality research. Phase II is the principal research project. Phase III is the conversion of the NSF-funded research into commercial applications and technological innovation supported by follow-on private venture capital or other non-federal financing. This PhaseI project addresses the networking requirements of desktop multimedia systems. Research is being done in four areas: 1) network resource management to support multimedia traffic, 2) multimedia transport protocols including multicast support, 3) multimedia conference control, and 4) multimedia internetworking with existing room teleconference equipment. ***